Conference on Combinatorial Methods in Algebra to be held April 16-18, 1998 in Fayetteville, Arkansas

9801278 Retakh This awards supports the 22nd conference of the University of Arkansas Annual Lecture Series in the Mathematical Sciences. This meeting will bring together leading experts in the fields of combinatorial methods in algebra. It will provide a forum for an exchange of ideas as well as an opportunity for young researchers and graduate students to interact with prominent researchers in their areas. This conference is concerned with the use of combinatorial methods in algebra. Such methods are being widely used in a broad range of areas in algebra including ring theory, Lie algebras, and algebraic geometry. This conference will bring together individuals with different perspectives and will encourage interaction among them.